Ship Operations

9625720 BROWN The University of Miami will operate the R/V CALANUS during 1996 as a general oceanographic vessels in support of NSF-sponsored research projects. The R/V ISELIN a 170' general research vessel owned and constructed by the University of Miami is out of service following a grounding in 1994. The University intends to sale the vessel. The CALANUS is a 68' general research vessel owned by the University of Miami. The CALANUS is scheduled for 87 days in 1996 of which 24 are in support of NSF-sponsored research. The Calanus will do a series of short cruises of the coast of Miami with three cruises in the Bahamas. The CALANUS is part of a fleet used by NSF to support oceanographic research. Most oceanographic research requires highly specialized equipment that must be permanently installed on a ship for which the ship must be specifically designed. This equipment also requires highly trained crew members for maintenance and operation. These vessels do not operate in the same manner as general cargo or fishing vessels, therefore NSF supports the operation of a variety of vessels specifically dedicated to oceanographic research that are operated by universities and research institutions around the country. ***